Analysis of Algorithms for Continuum Models of Complex Materials

The focus of this project is the analysis of numerical schemes, and
the development of algorithms, to simulate materials which exhibit
intricate rheological behavior or mechanical response due to their
microstructural makeup. Examples include polymers, liquid crystals,
and blood, whose elastic molecules or cells influence the macroscopic
properties at the macroscopic scale. These materials are modeled by
formidable systems of partial differential equations whose structural
properties capture important properties and physical principles, and
it is important to develop numerical schemes to faithfully inherit
these. This project will bring together tools from partial
differential equations, continuum mechanics, and numerical analysis,
to analyze numerical schemes to simulate these systems.

The ability to simulate complex materials is a key technology required
for the design and development of many next generation products such
as micro-mechanical devices, ink jets, bio-materials, solar energy
devices, and prosthetic organs. Predicting material response is an
essential tool needed to determine biological or physiological
function; or to design and manufacture these materials; or for the
design of the multitudes of devices which use their special
properties. The research proposed here will result in improved
understanding of the mathematical models and the computational tools
used to accomplish these tasks.